Deterministic and Stochastic Dynamics for Language Learning and Change

Mitchener proposes to study stochastic processes and dynamical systems that model language learning and change, supported by statistical
analysis of manuscript and corpus data. The proposed models are
designed to account for variability in speech in ways that most
existing models do not. Some of the proposed models are
deterministic, and represent the distribution of speech patterns in a
population as probability density functions governed by
Banach-space-valued differential equations. Other proposed models are
stochastic, based on discrete Markov chains and stochastic
differential equations. The Markov chain models are the most
detailed, including simulated learning algorithms based on Bayesian
statistics. The PI plans to develop perfect sampling algorithms to
determine the mixing behavior of these Markov chains, which should
give some insight into linguistic questions of how typical the set of
existing human languages is with respect to the set of all possible
human languages. The stochastic differential equation models
represent the simplification of the Markov chain simulations to an
infinite population and continuous time. For all of these models, the
PI plans to run computer simulations and prove theorems about their
behavior using tools from dynamical systems theory, functional
analysis, and probability. The research will first address the simple
case of unstructured, well mixed populations, then add social
structure, and then delay dynamics as a model of literacy. The PI
plans to find hypotheses under which the delay dynamics give rise to
well posed problems. The PI is collaborating with linguist Misha
Becker at the University of North Carolina at Chapel Hill to develop
realistic models of human language learning and to test these models
against linguistic data.

Mitchener proposes to study mathematical models of language learning
and change. Most existing models assume an idealized form of speech.
For example, each person might have just one way of stating a given
meaning. In contrast, true speech is variable. The same person can
convey the same meaning by using a variety of word orders, for
example: John gave Fred a book. John gave a book to Fred. Fred was
given a book by John. As an improvement upon models that assume
idealized speech, the proposed models account for language variability
in two ways. Some of them represent each speaker's utterances with a
list of random choices among the alternatives. The others are not
explicitly random, but instead keep track of how often a speaker
prefers the possible options for expressing a meaning. In a model
with idealized speech, learning takes place when a speaker chooses one
alternative from a list. Under a variable speech model, learning is
much more complicated because each speaker must learn which of many